Research Experiences for Undergraduates in Chemistry at Columbia Unversity

Professor Leonard W. Fine and other members of the Chemistry Department of Columbia University are being supported to continue a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend ten (10) weeks each summer actively engaged in a variety of research projects. Projects range from synthesis of natural products and pulsed laser investigation of reaction intermediates to study of surface reactions in catalysis. Interaction between these student participants and high school seniors participating in the Columbia University Summer Science Program are encouraged.